First Tennessee Conference on Biomedical Engineering, 4-5 April, 1998, Memphis, Tennessee

9804727 Kiani Support is provided for the "First Tennessee Conference on Biomedical Engineering", to be held on 4-5 April, 1998 on the campus of the University of Tennessee, Memphis. The theme of the conference is "Engineering the Future of Healthcare in Tennessee". The theme was developed from a recognition of the need to foster collaborative efforts between industrial, academic, and clinical institutions that are involved in biomedical engineering, and to increase the awareness of biomedical engineering related activities in the state of Tennessee. Information about the meeting is disseminated through an Internet WEB page at URL http://bme.utmem.edu/~tnbme/. The primary objective of the meeting is to initiate a process to increase the awareness of biomedical engineering activities in Tennessee on the part of industrial, academic, and clinical institutions. The organizers place special importance on attracting students and industrial representatives to the meeting. The final report of the conference will include conference proceedings, a report by the Evaluation Committee concerning the feasibility of holding future meetings, and the results of a survey of the participants concerning their satisfaction with the meeting. ***